Presidential Young Investigator Award

The central theme of this research is understanding and predicting the properties of materials from chemical structure. Methods are being developed for exploring the microscopic mechanisms underlying macroscopic behavior, and for establishing quantitative links between structure and properties, through detailed modeling and simulation of materials at the molecular level. The availability of powerful and cost effective computational facilities is crucial to the success of these efforts. Among the projects are: (1) atomistic simulation of the structure and properties of polymer surfaces and polymer/solid interfaces; (2) exploration of the interfacial thermodynamics of polymer and copolymer melts via lattice-based and continuum mean-field approaches; (3) prediction of sorption equilibria and diffusion coefficients of hydrocarbon molecules in zeolites; (4) microscopic investigation of sorption and transport of small molecular-weight penetrants in polymer glasses; (5) prediction of the mechanical properties of glassy polymers. This research is being conducted under a Presidential Young Investigator Award.